Finite Sample Performance of Multivariate Location and Scatter Estimators

TITLE:

Finite Sample Performance of Multivariate Location
and Scatter Estimators

ABSTRACT:

This research develops new methodology and theory in the
performance evaluation of multivariate location and scatter
estimators. The research is to propose finite sample performance
criteria of multivariate location and scatter estimators based on
their ``tail behavior'', to investigate and assess the performance
of existing and new multivariate location and scatter estimators
with respect to the proposed criteria, and to provide guides to
statistical practices in applications.

Given an estimator of some unknown parameter, a natural question
is -- how good is the estimator? or how should one measure its
performance? These questions are fundamental in statistical
estimation and inference. To answer these questions, various
performance criteria have been proposed and studied. Among the
existing performance criteria, asymptotic approaches including
Fisher consistency and large sample normality are the most prevalent
ones. These approaches have been based on the behavior of the
estimator as the sample size approaches infinity. This, however,
raises some serious concern about the relevancy of the asymptotic
results in practice, where the sample size is always fixed and
finite. The study of the finite sample performance of multivariate
location and scatter estimators thus is not only practically
significant but also theoretically interesting. In sharp contrast
with the asymptotic approaches, in this research the performance
of multivariate location and scatter estimators is studied for
fixed and finite sample size.

The research develops new methodology and valuable insights
into the comparison of estimator performance particularly from
robustness standpoint. Inherent connections of our finite sample
performance measures with two most crucial and promising notions
in the robust and nonparametric statistical analysis and inference,
the finite sample breakdown point and the data depth (especially
Tukey-Donoho halfspace depth), are to be explored and illuminated.
It is to be shown that the estimators with high breakdown point or
halfspace depth possess remarkable finite sample tail performance.
Findings like this in the research offer new insights into and deepen
our understanding of the notions of breakdown point and halfspace depth,
and establish the important role of the finite sample tail behavior as a
quantitative assessment of robustness of estimators. The research has
profound impact on statistical applications in various disciplines of
sciences such as social, behavior and life sciences, environmental and
biology sciences, industry, and economics. The research suggests,
for example, that location estimators with appealing tail performance
(e.g. depth-based multivariate medians) should be preferred in practice
to traditional least-squares estimators (e.g. the multivariate mean)
for robustness against the influence of extremities of observations in
multivariate data analysis. The research also benefits education through
the training of graduate students and the incorporation of the developed
methodology in statistics courses.